Support of SCOR Working Group Meetings Related to Global Geosciences

Workshops and planning meetings will be convened under sponsorship of the Scientific Committee on Oceanic Research (SCOR), with cooperation from other international organ- izations (such as the Intergovernmental Oceanogaphic Commission (IOC)) and from individual countries. Participa- tion of scientists from developing countries will be supported in such workshops/meetings which are of mutual interest to SCOR, these developing countries, and the United States. Topics of such workshops/meetings are likely to include: cycling of trace metals in estuaries; wave modelling; hydrothermal processes at plate boundaries; intercalibration of drifting buoys; and sea level change and its relationship to erosion of the world's coastline. The SCOR staff will provide necessary planning, organization and follow-up for these meetings and will arrange for needed participation of developing country scientists. The SCOR staff will provide analogous support for extensive planning activities related to the work of SCOR's Committee for the Joint Global Ocean Flux Study (JGOFS). The latter staff support will initially include planning and arrangements for a JGOFS North Atlantic Pilot Study.